Microscopic Theory of Nuclear and Hypernuclear Structure and Reactions

One of the primary goals of nuclear physics research is to determine how
the constituents of a nucleus interact with each other and what phenomena
occur due to these interactions. New opportunities to explore these
interactions have emerged with the development of improved experimental
techniques and facilities. For example, nuclei whose proton or neutron
numbers are very different from those of naturally occuring isotopes are now
studied with high intensity radioactive beams. A comparison of the expermental
results from these facilities with the predictions of the proposed calculations
will provide an understanding of the phenomena and their dependence on the
underlying interaction. Such calculations also provide a guide for
experimentalists by telling them which experiments will yield information on
specific components of the interaction or which experiments will produce a
desired phenomena. Many of these calculations will lead to a better
understanding of the types of radiation emitted from stars and how elements
are made inside stars. In addition, a theory of how the protons and
neutrons that comprise a nucleus interact with each other can be extended to
the interactions among protons, neutrons, and the many unstable particles
that exist for only fractions of a second. Therefore, an additional task is to
develop and test these more general interactions. It is likely that the
particles that are unstable here on Earth can be stable under extreme
conditions such as inside neutron stars and, therefore, alter the properties
of neutron stars.